Electron Acceleration in a Non-Uniform Plasma

Present methods of accelerating charged particles such as electrons depend upon so called accelerators. Previous research has shown interaction of intense laser radiation with a plasma that can accelerate electrons to very high energies. The researchers are carrying out more detailed studies on the coupling of laser energy to electron plasma waves and are investigating the effect of plasma parameters such as electron density, density gradient, turbulence, and scale length on the acceleration of electrons. The experimental data being acquired should provide insight into onset, growth, and saturation of electron plasma waves driven by intense radiation (laser). The experiments also provide graduate student experience in optics, lasers, particle acceleration, parmetric processes, electrical discharges in gases as well as theoretical and computational explanation of the observation.